Critical Analysis of Historical Data Relating to Climate Change

This dissertation study focuses on the character of production strategies in 10th to 14th Century Iceland in the context of foreign exchange, ecological succession and climatic change. Field ethnography and other Icelandic research on agriculture will be used to carry out a problem-oriented analysis of Medieval documents on livestock production. This research will provide a valuable critical analysis of historical data relating to the effects of climate change and socioeconomic transformations over time.